Building Local Science Education Resources

This project consists of two activities: 1)An award program for teachers in Native American school in two parts: a)Exemplary Science Teaching Awards in a program called Research for Renewal. An award of $2,500 will be given to a teacher recommended by the NASEA Awards Committee in each of five geographical regions each year. NSF will support eight such awards over a period of two years. b)Outstanding Awards are made to successful nominees for a Field Research Expedition. Six awards of $2,000 each are to be made to teachers in the Northwest region. 2)Production of a Promising Practices and Practitioners Publication. This will be a compilation of successful science lessons that teachers in Native American schools have developed. The grant will cover the cost of assembling the material, preparing a 174-page booklet, and distributing 1000 copies to teachers in Native American schools.